Building the Biological Computer Image and Simulation Laboratory

NeXt based computer and data acquisition equipment expands the ability of the Biology Department to offer students the opportunity to enhance their understanding of basic principles through computer representations and analysis. Instructional software supplements students' hands-on exploration of biological concepts and methodologies.